The Adaptive Significance of Life Cycle Events

Practically all plants and animals show seasonal breeding, wherein young are produced at defined periods of the year. Much is known about the physiology that initiates seasonal reproduction, but relatively little is known about the ecological forces that cause animals to restrict breeding to a particular time of the year. It has long been assumed that animals time production of young so that they meet a favorable environment for growth and survival. Information on a wide variety of birds, however, suggest that young produced early in the season have substantially greater success than young produced later in the season. This calls to question the traditional view that breeding seasons for birds are timed so that young hatch at the optimal time of the year. In particular, why production of young does not occur earlier in the season is of interest. This research is designed to answer that question by altering the date of hatch in two colonial waterbirds, Herring Gulls and Forster's Terns. To interpret experiments that alter hatch dates, the effects of reduced incubation periods must be understood. Information on the influence of shortened incubation can be of immediate value to conservation biologists and managers working on threatened birds. Colonial waterbirds are a particularly vulnerable group because coastal islands are one of their preferred nesting habitats, yet these are favored sites for human recreation and development. Egg manipulations that shorten incubation periods and reduce a vulnerable phase of the nesting cycle are one form of intensive management that have great potential for increasing production from wild populations.